The Role of Sequential Signals and Immunocompetence in Female Choice

Borgia 9808863 In many species, females choose their mates based on a complex suite of characteristics. The function of multiple elements in complex male courtship displays is not well understood. Male satin bowerbirds have extremely complex multifaceted displays involving decorated bowers, constructed and maintained by the male, and courtship behaviors. Three different studies are proposed to explore how the components of male display affect mate choice by females. Low quality bowers will be enhanced and female visitation patterns at bowers will be monitored to test the hypothesis that females match the quality of display traits important in initial assessment of males with those used in later stages of assessment. A study of signaling using female bowerbird will help identify the function of and constraints on courtship displays in female assessment of males. A test of the immunocompetence hypothesis ( that suggests there is a trade- off between a male's display competence and the competence of his immune system due to on the physiological effects of high testosterone levels) will assess the coastlines of male display and how that may affect the ability of males of different quality to produce effective multifaceted displays. These experiments will help resolve the function of multiple elements in male display, and illuminate the ways in which females integrate these diverse elements in the process of mate selection. Mate choice is a fundamental process that affects social interactions and the evolution of many characteristics. The proposed research will allow important hypotheses about the function of mate choice to be evaluated.